Research Training Group in Language: Acquisition and Computation

This award will establish a Research Training Group in Language Acquisition at the Massachusetts Institute of Technology. The faculty group includes 19 members of two departments: that of Linguistics and Philosophy, and that of Brain and Cognitive Science. The RTG will establish a new, 5 year graduate program with elements drawn from the curricula of both departments. The funds awarded will provide stipends for graduate students, equipment needed for the training program, and limited travel funds and specialized technical assistance for the trainees. An central focus of research in both linguistics and in cognition has been understanding how the ability to use language develops in humans, both historically and individually. Related questions involve the representation of language in the brain, and the mechanism by which such representation is computed or manipulated by the brain. Separate progress in our understanding of the structure of languages, and of the structure and function of the brain and of the other organs involved in speech has set the stage for significant multidisciplinary research that synthesizes the experimental approaches and results of traditional linguistics, of psycholinguistics and of computational science. The training provided by this program will provide students will the varied backgrounds and skills needed to do this kind of research.